Genetic Analysis of Blue Light Perception and Signal Transduction Mechanisms in Plants

The long-term objectives of this proposal are to determine at the cellular and molecular level how blue light is perceived by plants and transduced into growth responses. This project will investigate the physiological and genetic basis for blue light responses in higher plants using Arabidopsis as a model system. The response we will concentrate on is the inhibition of hypocotyl elongation caused by continuous blue light. Specific goals are to isolate a number of mutant strains that show altered responses to blue light and to use these mutants to characterize portions of the signal transduction pathway, perhaps the blue light receptor itself. Physiological analysis of the mutant plants will be conducted in order to identify what phases of the response are affected by the mutations. Interactions between various blue and red light responses share signal transduction events. Plants containing two or more light-response mutations will be genetically constructed and used in the investigation of the light-dependent signal transduction networks. The blue light-response mutants will be genetically characterized using complementation analysis to determine the minimum number of steps involved in signal transduction. Finally the mutations will be mapped to their chromosome locations followed by gene isolation, using T-DNA insertion mutants or by chromosome walking, in order to identify the proteins required for blue light signal transduction. Light not only supplies plants with the energy for photosynthesis, but also regulates nearly all stages of plant development, independent of photosynthesis. For a seedling to properly establish itself requires the coordinated action of numerous developmental pathways. Light, through the action of several photoreceptor systems, triggers many of the developmental changes essential for seedlings to make the transition from growing in the darkness of the soil to the light of the sun. The red/far red light receptor, phytochrome, has been the most intensively studied, whereas the nature of the blue and ultraviolet receptors is virtually unknown. This proposal seeks to identify and investigate the mechanisms by which plants perceive and respond to blue light and, thus, how plants adapt to different light conditions. The investigation of blue light response systems is likely to lead to important new insights into the physiological and molecular mechanisms controlling photomorphogenesis during seedling establishment.***//